Gordon Research Conference on the Chemistry and Physics of Microstructure Fabrication: July 9-12, 1990, New London, NH

This proposal request funds to support the attendance by graduate students of the 1990 Gordon Research Conference on the Chemistry and Physics of Microstructure Fabrication which will be held on July 9-12, 1990 at Colby-Sawyer College in New London, NH.